Brandeis Summer Odyssey Young Scholars Project

9353862 Wardle Brandeis University seeks to provide enrichment experiences for a four-week summer residential Young Scholars program for 30 students entering grades 10-12. The program is multidisciplinary and provides students an opportunity to engage in hands-on class work, career counseling workshops, field trips and independent projects that enhance thinking and research skills. The students will also participate in directed research projects, in which they learn research methodology and practice through work in one of the three Brandeis centers; the Graybiel Spatial Orientation Laboratory; the Volen National Center for Complex Systems; and Brandeis Environmental Studies.